Evaluating the Effectiveness of Interprocedural Optimization for Parallel Code Generation

This award is for a postdoctoral associate in Experimental Science. The associate, Mary Hall, will be working on interprocedural optimization for parallel computers.